Toward a Complete Near-IR Spectroscopic Survey of Giant Molecular Clouds

AST 0204976
Lada

Giant Molecular Clouds (GMCs) are the dominant sites of star formation in the Galaxy, yet the nature and distribution of their young stellar content has yet to be thoroughly or systematically investigated due to the large distances to and large angular sizes of the clouds. Dr. Elizabeth Lada and her colleagues, at the University of Florida, have been awarded roughly 200 nights of "survey" time allocated over 5 years from the National Optical Astronomy Observatories. This extremely large allocation of time on the 2.1-m and 4-m telescopes at Kitt Peak will be used to study the full mass range of young stars within nearby GMCs. These researchers are using the world's first near-IR multi-object spectrometer called FLAMINGOS, to obtain sensitive near-IR imaging surveys and for the first time extensive near-IR spectral classifications for stars in GMCs. The survey observations will provide a statistically significant census of near-infrared sources within the nearest giant star forming molecular clouds to a depth and completeness unequaled by any other existing or planned survey. A complete catalog of the near-IR photometry and spectroscopy for all sources will be constructed and provided to the entire astronomical community. This database will provide a unique and valuable resource for studies of star formation and molecular clouds using both ground based optical and radio telescopes (e.g. Gemini & ALMA) and space missions (e.g. SIRTF, Chandra & XMM).
***